Measurement of the Fundamental Field-Spectrum Linewidth in Quantum-Well Seimconductor Lasers

The influence of phase fluctuations on laser linewidth and hence of the influence of such fluctuations on coherent detection systems for communications and signal processing systems is investigated. Multiple quantum well laser will be used.